Synthesis of Conjugated Polymers via Ring-Opening Alkyne Metathesis Polymerization of Carbon Nanohoops and Arynes

Professor Semin Lee of Louisiana State University will investigate the use of carbon nanohoops and arynes as building blocks for preparing conjugated polymers. Conjugated polymers are plastics that can conduct electricity. They are essential materials for fabricating thin and light organic electronic devices. It is ideal to synthesize conjugated polymers with well-defined lengths and uniformity to achieve high-performance and batch-to-batch consistency in organic electronics. Carbon nanohoops are cyclic organic compounds that can conduct electrons along their backbone. The nanohoops will be catalytically opened and connected to yield conjugated polymers with well-defined length and uniformity. By opening two or more varieties of carbon nanohoops in sequence, conjugated polymers with blocks of specific functionalities can be prepared. Systematic investigation of their assembly and electronic properties will help advance the field of organic electronics and stimulate advancement of microelectronics and semiconductors. To help develop the next generation of the STEM workforce, virtual reality (VR) will be used for K-12 outreach activities to spark excitement in scientific areas involving biological or synthetic molecules. Students will interact directly with virtual molecules and walk inside them. Professor Lee will also implement VR in undergraduate and graduate chemistry courses so that students can understand the three-dimensional structure of molecules and how it affects their reactivity and function.

The proposed research will first focus on synthesizing carbon nanohoops bearing electron-donor or electron-acceptor arene groups. Alkyne metathesis will be used for the macrocyclization step to achieve scalable synthesis. Therefore, the nanohoops will have strained alkyne bonds along their backbone. Mildly active Mo(VI)- and Re(V)-based alkyne metathesis catalysts will trigger ring-opening alkyne metathesis polymerization (ROAMP) of carbon nanohoops, yielding conjugated polymers. The goal is to prepare conjugated polymers with high molecular weight and low polydispersity, compared to other polymerization methods. The ROAMP method will enable the preparation of block copolymers with electron-donor and electron-acceptor blocks, a key component for advanced organic electronic devices. Additionally, the reactivity of highly strained arynes against alkyne metathesis catalysts will be investigated both computationally and experimentally.